PRF/J: The Evolution of Diet Breadth in the Two-Feeding Beetles

9403244 Fox This research aims to develop a system to be used as a model for testing fundamental genetic hypotheses dealing with the evolution of insect diet breadth, including host shifts and/or expansions. Evolutionary mechanisms responsible for diet breadth will be sought using two sibling species of seed-feeding beetle, Stator beali (a specialist restricted to the host plant Chloroleucon ebano) and Stator limbatus (a feeding generalist associated with more than fifty host plant species). The work involves documenting patterns of intra- and inter-population variation in oviposition preference and host suitability, and subsequently examination of genetic and environmental sources of this variation using laboratory and field experimentation. %%% Performing a genetic analysis of mechanisms responsible for insect diet breadth is important to understanding sympatric speciation, incorporation of novel host plant species into diet (particularly for introduced pests), maintenance of genetic variation within natural populations, and development of reliable pest control practices / techniques. ***